CRCD: Computing Appliances: A Context for Integrating Research and Education in Embedded System Design

This CRCD project supports the development at the University of Washington of an exportable package for the capstone design course emphasizing computing appliences, creates two new undergraduate courses on embedded systems programming, creates a new graduate course on the elements of computing appliances, and brings the results of research in embedded system design and design automation as well as internetworking protocols to the undergraduate curriculum. The exportable package for the capstone course consists of course modules and web-based materials that can be augmented and updated by the community and used to rapidly set up new project courses, labs, and individual senior projects. The two courses on embedded systems programming include material on device drivers, real-time programming and operating systems, component-based programming models and also material in the area of wireless networking. Overall, the project is planned to modernize the computer engineering curriculum by focusing on a class of devices, services, and applications that are expected soon to be center-pieces of the consumer electronics and computing industries.